U.S.-Japan Cooperative Research: Study of Interface Radiative Properties by Electromagnetic and Molecular Kinetic Theories

This award supports a two-year collaborative research project between Professor Richard O. Buckius of the University of Illinois and Professor Kunio Hijikata of Tokyo Institute of Technology and Professor Toshiro Makino of Kyoto University. The objective is to experimentally and theoretically analyze radiative heat transfer properties of surfaces and films from first principles. Usual radiant energy transfer calculations for surfaces and films make rather ad hoc assumptions about the surfaces roughness, length scales, and material properties due to the lack of fundamental knowledge of the radiation scattering characteristics and the interface parameters. Very common engineering approximations include specular reflection, diffuse reflection, constant bulk material properties, small interface roughness, etc. These approximations are often inaccurate for surfaces used in many practical applications, and they usually require an empirical approach to determine specific values of the radiative properties. The collaborative project considers exact approaches to the quantification of the radiative surface properties through the use of general electromagnetic scattering and molecular kinetic theories. The U.S. group is addressing the rough and configured surfaces while the Japanese groups are studying the superconducting films and optical properties and rough films from a fractal-based approach.